Invariants of Links and 3-Manifolds, Their Properties and Topology

Proposal: DMS-9971350

PI: Thang Le

Title: "Invariants of knots and 3-manifolds, their properties and topology"

Abstract: This research studies quantum and finite type invariants of
3-manifolds and their relationships with classical topological and
geometrical invariants. The investigator will continue to study
the universal finite type invariant of homology 3-spheres which he
developed in joint work with J. Murakami and T. Ohtsuki. In
particular, he plans to develop the theory further to include
other 3-manifolds and to study the topological quantum field
theory associated with the Le-Murakmi-Ohtsuki invariant which is
different from those associated with usual quantum invariants. He
will try to understand the topology of these new invariants and
find their applications. One of the projects is to study relations
between the hyperbolic, or more general, simplicial, volume of
knots and their quantum invariants (to prove the
Kashaev-Murakami-Murakami conjecture).

The theory of knots and 3-manifolds is an old branch of
mathematics which has gained renewed interest among mathematicians
and physicists after the discovery of the Jones polynomial and its
relation to theoretical physics (quantum field theory, high energy
physics). In fact, it is now one of the most active domains in
mathematics. Many results of knot theory may also find
applications in molecular biology. To classify knots and
3-manifolds, mathematicians use "invariants". This research
project studies new classes of invariants of knots and 3-manifolds
and their relationships with the classical ones. The new
invariants are very powerful in distinguishing knots and
3-manifolds.